Signal Processing for Acoustic Emission and Ultrasonic Testing

This project proposes to apply recent advances in the development of processing algorithms and programmable integrated circuits to nondestructive evaluation (NDE). Two NDE research areas are addressed, data acquisition and flaw detection. In data acquisition, it is proposed to investigate the use of adaptive waveform coding to reduce the sampling rate and the digitization word size and the use of signal decimation to reduce sampling rate. The significance of these two areas of research is that a lower sampling rate, provided signal fidelity is preserved, implies easier processing, and a reduced work size requires smaller data storage. In flaw detection, it is proposed to carry out research in improving the resolution in pulse echo flaw detection by signal correlation.